Multi-level Processing of Natural Language Texts for Information Retrieval

The existing methods for handling natural-language texts for information retrieval are applicable only to relatively homogeneous texts of approximately equal length and style covering related subject matter. The available methodologies for text analysis and indexing, text classification, text linking of related text excerpts, and text retrieval need to be extended to cover large heterogeneous texts, such as collections of messages of the kind now being circulated on electronic networks, and collections of encyclopedia articles. In these cases, the articles differ in length and subject matter, and often also in style and structure. Such articles may also include extraneous materials, such as quotations from other texts, and bibliographic citations and cross-references. Two main tasks are undertaken, consisting of an automatic text analysis and text linking system capable of recognizing text excerpts covering related subject matter. When similar text portions are appropriately linked, a network structure is produced for each text collection which then guides the user during the text retrieval operations by producing reading prescriptions in response to particular user queries consisting of chains of related texts or messages. The results obtained in this research are expected to lead to the implementation of new text handling systems in practical environments that are of interest to a wide variety of users.